Project Science: A Program in Education and Training in Management of Big Science Projects

August 14, 2008

ABSTRACT

Proposal: 0848474
Title: Project Science: A Program in Education and Training in Management of Big Science Projects
Institution: California Institute of Technology
NSF Program: Elementary Particle Accelerator User Groups
Principal Investigator: Sanders, Gary H.

Efficient management of large science facilities requires experience and skills not usually found in the repertoire of research scientists.

This proposal addresses the planning and definition of educational programs for early-career scientists (undergraduate students through postdoctoral fellows), to practicing mid-career researchers as they approach leadership roles in project science settings or as they adapt to collaborating in existing projects.

Building upon the prior activity "Project Science: A Program in Education and Training in Management of Big Science Projects, the PI proposes to extend this research and workshop program for up to two years while developing a follow-on proposal for a broader activity combining these lessons learned workshops in the management of big science projects, and the synthesis of the case studies into new insights and practices in this field with a new activity that reaches out to the involved communities through a monthly electronic newsletter, community based web presence and electronic publishing.

Marvin Goldberg
Program Officer
MPS/PHY/EPP